Mathematical Sciences: The Log Model Theory

This awards supports the research of Professor V. Shokurov to work in algebraic geometry. He will work on problems involved in minimal model theory in dimensions greater than or equal to 3. He hopes to show that flips exist in dimension n whenever the Log Minimal Model program holds in dimension n-1. He will also study log canonical singularities in dimension 3. The research is in the field of algebraic geometry, one of the oldest parts of modern mathematics, but one which blossomed to the point where it has, in the past 10 years, solved problems that have stood for centuries. Originally, it treated figures defined in the plane by the simplest of equations, namely polynomials. Today, the field uses methods not only from algebra, but also from analysis and topology, and conversely it is extensively used in those fields. Moreover it has proved itself useful in fields as diverse as physics, theoretical computer science, cryptography, coding theory and robotics.